Role of Defects in Chemical Vapor Deposition (CVD) Diamond and Related Phases

This project addresses basic research issues on the synthesis and processing of diamond films. Microwave plasma assisted chemical vapor deposition is used to synthesize the films under a variety of deposition conditions, and a parametric variation of these conditions will be conducted to achieve films with improved structural, optical, and electronic properties. Emphasis will be placed on the characterization of the effects that lattice defects have on the electronic and optical properties. The research program seeks to obtain fundamental information on the nucleation and growth of three crystallographic orientations, (100), (110), and (111), and to understand the details of atomic structure in these growth sectors. Diamond films have many potential technological applications ranging from wear-resistant coatings to more sophisticated and demanding uses such as primary electronic and optical materials with particular advantages for use in high temperature environments.